Conference: The African Diaspora: Developing Black Scholars in Science Education for the 21st Century in the United States

This proposal seeks support for a conference/symposium grant to provide an opportunity for African American faculty members in science education to interact with their academic colleagues and enhance their knowledge of research being pursued in science education. It proposes to convene a conference/symposium to develop a cadre of African American science education faculty to research issues surrounding the teaching and learning of science. This cadre of African American faculty will develop a research agenda, submit grant proposals for funding, and submit manuscripts for publication. The overall goal of this project is to improve K-12 teaching and learning by faculty development of the research scholarship of African American science educators in the United States.